SBIR Phase I: Infrared-Laser-Based Rapid Prototyping

9860606
Cockroft
This Small Business Innovation Research (SBIR) Phase I project will evaluate a low cost high speed, high resolution hybrid resin for rapid prototyping (RP). In polymer-based RP systems, the laser subsystem is the major bottleneck in throughput and is the principal cost driver. Twin innovations will serve to minimize these effects: (1) a novel resin system that cures upon exposure to infrared (IR) radiation; and (2) replacement of a single-beam UV laser with an inexpensive linear array of IR lasers having tens of thousands of emitters. Instead of a flying spot driven by a modulator and deflection mirrors, a linear array can be shuttled across the work surface, completing one layer per sweep. Instead of varying the dwell time to control shrinkage, the output intensity of individual emitters will be variably controlled.
Potential commercial applications include all present and future polymer-based rapid prototyping systems. Markets include new equipment sales, retrofits to existing systems, and after market sales of resin and replacement parts. Instead of employing a $100,000 UV laser with a lifetime less than 5,000 hours, one IR array with a lifetime in excess of 100,000 hours can be employed at only slightly greater expense. The net result is a significant reduction in subsystem complexity and cost of ownership, coupled with order of magnitude increases in throughput and reliability.